Bio-Sphere: Fostering Deep Learning of Complex Biology for Building Our Next Generation's Scientists

Today's citizens face profound questions in science. Preparing future generations of scientists is crucial if the United States is to remain competitive in a technology-focused economy. The biological sciences are of particular importance for addressing some of today's complex problems, such as sustainability and food production, biofuels, and carbon dioxide and its effect on our environment. Although knowledge in the life sciences is of critical importance, this is an area in which there are significantly fewer studies examining students' conceptions than in physics and chemistry. The goal of this project is to help middle school students, particularly in rural and underserved areas, develop deep scientific knowledge and knowledge of the practices and routines of science. A major strength of Bio-Sphere is the inclusion of hands-on design and engineering in biology, a field in which there are fewer instances of curricula that integrate engineering design at the middle school level. The units will enable an in-depth, cohesive understanding of science content, and Bio-Sphere will be disseminated nationally and internationally through proactive outreach to teachers as well as scholarly publications.

This project addresses the need to inculcate deep learning of complex science by bringing complex socio-scientific issues into middle school classrooms, and providing students with instructional materials that allow them to practice science as scientists do. Research teams will develop, iteratively refine and evaluate an innovative learning environment called Bio-Sphere. Bio-Sphere combines the strengths of hands-on design and engineering, engages students in the practices of science, and fosters learning of complex science issues, especially among underserved populations. Each Bio-Sphere unit presents a complex science issue in the form of a design challenge that students solve by conducting experiments, using visualizations in an electronic textbook, and connecting with the community. The units, aligned with the Next Generation Science Standards, provide greater coherence, continuity, and sustained instruction focused on uncovering and integrating key ideas over long periods of time. The project will follow a design-based research methodology. In Phase 1, the Bio-Sphere materials will be developed. Phase 2 will consist of studies in Wisconsin schools to generate existence proofs, i.e., examining enactments with respect to the designed objectives to understand how a design works. Phase 3 studies will focus on practical implementation: how to bring this innovative design to life in very different classroom contexts and without the everyday support of the design team, and will be conducted in rural schools in Alabama and North Carolina.